Acquisition of Instrumentation and Technology Improvements for a Research and Education Observatory

0520812/Caton--Appalachian State

Instrumentation and equipment will be acquired for use in research and teaching at Appalachian State's Dark Sky Observatory. This will include a new red-optimized spectrograph for use on the 32-inch telescope. That same telescope will receive components and upgrades that will allow it to be used remotely, via the Internet. A low-light, all-sky camera and cloud sensor will provide for remote monitoring of sky conditions as well as additional research and education projects.